CPS: Small: Reachability Analysis for Nonlinear Cyber-Physical Systems.

Modern cyber-physical systems — such as autonomous vehicles, medical devices, and power grid controllers — must operate safely despite uncertainty in their environments, models, and decision-making components. A key challenge in ensuring their safety is predicting all possible future behaviors of these systems to verify that unsafe conditions are avoided. Doing so, in practice, allows us to encounter unforeseen and potentially dangerous behaviors in these systems. This problem, known as reachability analysis, is central to the design and certification of safety-critical systems. However, existing methods struggle to scale to complex, nonlinear systems and are especially challenged when systems incorporate artificial intelligence (AI) components. This project addresses a fundamental gap by developing new mathematical and computational tools for analyzing such systems under uncertainty. The proposed advances will improve the ability to provide strong safety guarantees for emerging technologies, particularly AI-enabled autonomous systems that are increasingly deployed in domains critical to national health, economic prosperity, and public safety. By enabling more reliable verification of these systems, the project contributes to safer transportation, more robust medical technologies, and resilient infrastructure. In addition to its research contributions, the project will support education and workforce development through open-source software, benchmark problems, and a summer school on cyber-physical systems. These activities will help train students in an interdisciplinary area spanning control theory, computer science, and applied mathematics, while broadening participation in this field. Overall, the project advances the science of cyber-physical systems and supports the national interest by improving the safety and reliability of technologies that are central to modern society.

This project develops a novel framework for reachability analysis of nonlinear cyber-physical systems, including systems with learning-enabled components. The central idea is to decompose reachability into two interacting problems: constructing accurate approximations of system trajectories and computing rigorous bounds on the error between these approximations and the true system behavior. The project introduces new classes of trajectory approximations that extend beyond standard polynomial (Taylor series) methods to include rational function (Padé) approximations and Fourier-based representations. These approximations provide improved accuracy over longer time horizons and for oscillatory dynamics. In parallel, the project develops scalable techniques for bounding approximation errors by exploiting properties of mixed monotone dynamical systems, which provide mathematically sound over-approximations of reachable sets under uncertainty. The framework is further extended to systems with neural network controllers by combining trajectory approximation with neural network verification techniques that bound their input-output behavior. The proposed methods will be evaluated on numerous benchmark problems and applied to representative cyber-physical system testbeds, including autonomous systems, medical devices, and power networks. Expected outcomes include new theoretical foundations for nonlinear reachability, algorithms that improve scalability and precision, and prototype software tools. These contributions advance the state of the art in safety verification for complex dynamical systems and enable more reliable deployment of AI-enabled cyber-physical systems. Broader impacts of this work are enhanced by the development and release of open-source software tools, benchmarks and a proposed interdisciplinary summer school on cyber-physical systems.